Study of the Tropical Atmospheric Boundary Layer During Various Phases of the Indian Monsoon, A Guest Scientist Award in Indian Currency

Description: This project supports a U.S. scientists to spend a sabbatical from his university at two prestigious academic institutions in India, namely the Indian Institute of Science (IIS) in Bangalore, and the Indian Institute of Technology (IIT) in New Delhi. During that period Dr. Raman will continue his current collaborative research on planetary boundary layer (PBL), monsoon dynamics and air pollution, with scientists from the Center for Atmospheric Sciences (CAS) at IIS Bangalore and at IIT Delhi. He will increase his work on tropical boundary structures over land for both convective and stable conditions and monsoon dynamics. He will participate in the design of a three-year experiment at CAS for the study of the boundary layer structure in the monsoon trough normally located along the Gangetic plains during Indian southwest monsoon. At Delhi he will conduct research on air pollution meteorology and the work on PBL parameterization for Regional Scale Weather Forecasting Models. His contacts are Professors R.N. Iyengar at CAS, Bangalore and M.P. Singh at IIT Delhi. Scope: The P.I. is one of the leading experts in the U.S. on modeling of tropical weather, especially as related to the Indian subcontinent. He has long experience in conducting research with Indian scientists under several grants from NSF. One of the Indian collaborators (Dr. Iyengar) is Acting Head of the Center for Atmospheric Sciences at the Indian Institute of Science, one of India's top research institutes with excellent staff and facilities and with well planned research agenda. Dr. M.P. Singh at the Indian Institute of Technology in New Delhi is the Director of the Center for Atmospheric Sciences, and has a large staff engaged primarily in atmospheric modeling and air pollution studies. Drs. Singh and Raman have been collaborating for several years on a project that involved sending U.S. students for field studies in India. This project has the potential to produce significant results.